Instrumentation for Global Positioning Satellite Surveying

The goal of this project is to provide access to Global Positioning Satellite (GPS) surveying technology to undergraduate surveying students in both the BT (4-year) and AAS (2-year) surveying programs at the institutions involved in the project. The project involves the utilization of two dual-frequency, geodetic GPS receivers as well as accompanying software and peripherals. The project allows the development of new laboratory exercises in several bachelor- and associate-level land surveying courses, and allows for exposure of the technology to students in other programs such as construction. Also, the project emphasizes dissemination of state-of-the-art technology to undergraduate students at several colleges.